Computer Research Equipment (Computer Science)

A mobile robot and image-processing hardware will be provided for research in the Department of Computer Science. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the area(s) of Interpreting visual motion, perception for navigation, and error recovery in navigation tasks.